Differential Equations: A Dynamical Systems Approach

9352833 Blanchard A large-scale revision of the traditional sophomore-level ordinary differential equations course is being developed which emphasizes qualitative theory with a distinct dynamical systems orientation. A discussion of difference equations will precede the introduction of differential equations, the computer will be used to analyze solutions, and a more detailed discussion of nonlinear systems will be included. A consortium of colleges and universities will assist in developing the syllabus and materials, as well as serve as initial test sites for the textbook.